SGER: Building Biodecontamination: A Process Engineering Approach

0303633 Haas The principal investigators of this project intend to develop a response for terrorist attacks. Specifically, they propose to model the gaseous disinfection processes of an office after an anthrax attack. Development of such a model is a necessary precursor to an efficient decontamination strategy. Two existing indoor air-quality codes, will be modified to include features required for predicting inactivation rates of bacterial spores.